Real-Time Processing and Multi-Spectral Imaging Equipment for Intraocular Image Processing

This research involves two components. The first component is an extension of prior work under NSF grant MIP-9412500 on the development of algorithms for automatic generation of retinal vasculature maps, and real-time feature-based determination of retinal position from intra-ocular digital video image sequences. Specifically, a TMS320C80 video signal processor chip will be used to achieve fully transparent image tracking by reducing the time required to establish a tracking lock to a small number of video frame intervals. The second component to this research is to modify the fundus imaging system acquired under the previous award to achieve simultaneous imaging in the near infrared and visible bands using a pair of low-light video cameras. This instrumentation will be used to investigate real-time algorithms for artificially superimposing computed vasculature landmarks on late-phase Indocyanine Green angiograms. This research will result in the development of real-time image processing hardware and software technology for enabling the development of novel instrumentation for laser retinal surgery and related applications. It is motivated by the need to reduce the currently high failure rate (approaching 50%) of current procedures. This project is an application of high-performance computing technology to enable new advances in ophthalmology and related problems in biology and medicine. In addition to reducing the failure rate, this technology is expected to reduce the cost of laser retinal surgery by eliminating the need for repeated corrective procedures.